Travel Support for the 2018 ACS Symposium "Polymers with Complex Architecture: From Synthesis to Self-Assembly," New Orleans, LA March 18-22, 2018

TECHNICAL AND NON TECHNICAL ABSTRACT
Funds in the amount of $5000 are requested for support of US based participants in the 2018 ACS Symposium on "Polymers with Complex Architecture: From Synthesis to Self-Assembly " to be held at the 2018 National ACS meeting in New Orleans, LA, on March 18-22, 2018. The funds will be used to cover the registration fees for participating postdocs, assistant and associate professors. The symposium aims to highlight recent advances in controlled polymerization and functionalization techniques enabling the synthesis of chemically heterogeneous copolymers (and block copolymers) with complex architectures, as well as their self-assembly characteristics. The symposium offers opportunity for the cross-fertilization between academic faculty, R&D industrial researchers, postdocs and graduate students regarding progress in both fundamental and technological aspects of polymer synthesis, self-assembly and applications.